(AREA: Numerical Computing and Optimization): Numerical Linear Algebra Problems and Quantum Chromodynamics

Lattice Quantum Chromodynamics (QCD) is one of the world's top
consumers of supercomputer cycles. As with many other applications,
the computational bottlenecks are traced to numerical linear algebra
problems. Lattice QCD gives rise to Hermitian matrix problems, where
methods such as Conjugate Gradient (CG) or Lanczos converge
optimally. Yet, the matrices are of enormous size, and preconditioners
that speedup convergence by more than a factor of two or three have
been elusive. Equally important, lattice QCD involves two of the still
outstanding problems in numerical linear algebra: to find methods that
solve optimally a linear system with multiple right hand sides and an
eigenvalue problem for a large number of eigenpairs.
This research aims at developing new methods, theory, and
software that address the above numerical linear algebra problems,
both in general and as guided by the physics of the particular QCD
problems, thereby speeding considerably lattice QCD computations and
enabling further understanding of the structure of matter.

The key contribution of this research is to provide a unified view of
linear system and eigenvalue methods that leads to algorithms that
solve both problems at once in a nearly optimal way. The investigators
study new numerical techniques for efficient computation of quark
propagators in lattice QCD and extend them for improving the
efficiency of Hybrid Monte Carlo. They explore a new CG method that uses
previously developed recurrence-like restarting to obtain eigenvectors
and use the method to share information between successive correction
equations in the Jacobi-Davidson eigensolvers. Finally the investigators
develop well designed, tuned implementations of the above methods to the
Chroma package for lattice QCD, and to the state-of-the-art eigenvalue
package PRIMME.